Collaborative Research: Information Theory for the Rare Events Regime

This research involves the development of improved methods for
automatic processing of text documents. The research focuses
in particular on two specific text-handling problems: lossless
data compression and classification. Lossless data compression
is useful for reducing storage and transmission requirements
for large text documents. It is also an important step in
sending text securely via cryptography. Classification arises
frequently in web search problems and also in forensics, where
the goal is to determine the authorship of an anonymous document.

The approach is to draw new insights into these problems by
using a novel asymptotic regime in information theory, which
more accurately models real text sources than classical
models do. Specfically, the investigators consider a regime in which
the size of the data set and the source alphabet are comparably large.
It can be shown that most classical information theory techniques
fail in this "rare-events" regime. Nonetheless, new techniques can
be developed that are tailored to this regime that yield new algorithms
and insights.